Development of a Dynamic Cell Culture/Fluorescent Microscopy Research Instrument

9413921 Landsman This Academic Research Infrastructure Program proposal involves the development of a cellular research facility. The cellular research program at the Scholl College emphasizes the study of diseases involving the musculoskeletal and vascular system of the lower extremities. This program offers a unique form of cellular engineering in which cells will be examined in dynamic environments. Chronic repetitive mechanical stimulation associated with ambulation ultimately leads to numerous significant changes in the foot. Diabetic and neuropathic patients develop plantar ulcerations, and arthritic joints become further degenerated as a result of this trauma. Conversely, osteoporotic bones become more fragile, due to the inability of certain patients to accumulate and retain bone substance. The understanding of the relationship between macroscopic mechanical stimulation, and its expression at the cellular level is not well developed. New methods and equipment used to apply specifically controlled loads to cells in culture is critical to study these cellular responses. The focus of this research will be to develop the specialized equipment needed to carry out these experiments. ***